Maryland Theory Day at University of Maryland, Baltimore County, March 19, l993

The 8th Maryland Theoretical Computer Science Day will take place March 19, 1993, in the new Engineering/Computer Science Building at the University of Maryland Baltimore County. Five distinguished speakers will deliver fifty-minute talks on their current research. The program will cover a broad range of current topics on theoretical computer science and its applications, including biological computing, combinatorial analysis of algorithms, complexity theory, learning theory, and cryptology. This one-day event is expected to attract approximately one hundred researchers and advanced graduate students from the greater Baltimore-Washington D.C. area, including members of local Universities, businesses, and government agencies. Maryland Theory Day, which is held in cooperation with the University of Maryland Institute for Advanced Computer Studies, stimulates and facilitates the advancement of computer science through promoting interaction and joint work among local researchers. In addition, holding this event for the first time at UMBC will help establish UMBC's young and growing Computer Science Department.